Undergraduate Faculty Enhancement Workshop Electronic Courseware for Enhanced Learning in an Integrated Classroom /Laboratory Environment

Workshop participants will learn to design courseware modules for undergraduate courses in science and engineering classroom/laboratories. Participants will learn about an integrated classroom/laboratory environment that includes computer-controlled instruments, application software for data acquisition, simulation and data analysis, and some fundamental issues in learning theory based on the Kolb learning cycle and Bloom's taxonomy. By the end of the workshop, participants will design and author courseware modules for use at their home institution. The modules will be shared with workshop colleagues and engineering and science departments using the internet. All participants will get hands-on experience with Bucknell University's Electronic Classroom and several classroom/laboratories equipped with multi-media PCs, data acquisition and analysis software, simulation tools and authoring software. The workshop will include optional sessions on several software packages including C/C++ programming, analysis programs such as MATLAB and Mathcad, and simulation with LabView.